RUI: Sulfide Tolerance and Detoxification in Urechis Caupo

Urechis caupo, a worm-like animal, occurs in dense populations in three northern Californian mudflat environments which often show high levels of toxic hydrogen sulfide and low levels of oxygen. The intent of the proposed research is to characterize the environment of these animals and to use this information to design laboratory experiments investigating the biochemical basis for the adaptations that allow these animals to flourish in a seemingly inhospitable habitat. Sulfide and oxygen levels will be measured in the animal's environment and tolerance to high sulfide and low oxygen will be determined in the laboratory. Possible avenues of sulfide entry into the animal's body will be explored by examining skin and respiratory organ permeability to sulfide. The chemical fate of internal sulfide will be followed, characterized, and the ultimate endproduct of sulfide detoxification determined. In this way the path of toxic sulfide will be followed from entry into the animal as a poisonous compound to removal as a benign wasteproduct. The physiological mechanisms employed by this animal are potentially important in the elucidation of the adaptive strategies that allow large populations of invertebrates to flourish in sulfide-laden environments. Additionally, this research involves a new detoxification function for hemoglobin, a well studied and critically important transport protein.